NSF/NLM Connection to NSFNET

Abstract Group Health Cooperative of Puget Sound - I. Goverman Connection to Internet Proposal No. NCR-9318050 Group Health Cooperative of Puget Sound (GHS) requests funding to connect to the Internet via the NorthWestNet regional network. This will greatly aid the current projects in which GHC is already interacting with a number of regional and national partners to develop common data systems and form intellectual partnerships. GHC is actively pursuing a major project to develop a workstation for clinicians. In addition, the GHC has a long-standing commitment to addressing basic research issues. GHC's Center for Health Studies already collaborates with a number of academic institutions, both nationally and internationally. These collaborations will be greatly aided by an Internet connection.